Effects of Polarization-mode Dispersion on Fiber Communication Systems

The objective of this project is to study the effects of polarization mode
dispersion on fiber communication systems. Polarization mode dispersion (PMD)
is caused by random birefringence of optical fibers. As the bit rate per channel
is reaching tens of gigabytes per second, PMD has become a major limiting
factor on the system performance. The awardee will study the
effects of PMD on both linear and soliton communication systems. In particular,
he will investigate the probability distribution of the differential group
delay for various birefringence models as a function of arbitrary fiber length
in a linear transmission system. He also plans to examine the combined
effects of PMD and weak nonlinearity on the statistics of the transmission
spectrum measured through a polarizer at the output of a test fiber.
In addition, he will assess the effects of PMD on a soliton communication system.
He will examine the statistics of PMD-induced timing jitter, polarization
fluctuations and dispersive radiation, and estimate limitations imposed by PMD
on soliton transmission. These problems are different but inter-related.
The results of these studies will provide theoretical guidance on various
aspects of communication system design.

This project studies the effects of polarization mode dispersion (PMD) on fiber
communication systems. This is a phenomenon that degrades the performance of
optical fiber communication systems. It occurs randomly along optical fibers,
changes with time and is hard to control. Therefore it is a major limiting factor for the
performance of optical telecommunication systems. The work will directly address the
realistic problem of PMD effects on current fiber communication systems
through the develoment and analysis of mathematical models and will thus lead to
design recommendations and performance bounds for such systems